NSF Workshop: Strain Localization and Size Effect Due to Cracking and Damage, Laboratory of Mechanics of CNRS, Paris-Cachan, Summer 1988

Funds are requested to partially support a workshop to be held at the Laboratory of Mechanics of CNRS, Paris-Cachan, during the summer of 1988. The purpose of the workshop is to assess the current status of research in strain localization and size effect caused by cracking and damage in brittle materials. The workshop will provide a forum for an in-depth discussion of the frontiers of research in this field. The workshop will be attended by several leaders in the field and will result in recommendations for future directions in this important research area. Improvements in the understanding of strain localization and size effects due to damage and cracking is essential for further progress in the modeling of failure in concrete structures, geotechnical engineering, mining, design of two-phase ceramic composites and many other problems of materials and structural engineering. Professor Bazant is uniquely qualified to organize and chair this workshop. An award is recommended.